Nuclear Structure Research (Physics)

This grant supports operation of the Notre Dame tandem accelerator laboratory, as well as a program of nuclear physics research at the facility. Activities include the study of thermal equilibration and the space/time extent of the composite nuclei formed by heavy ions, the temperature dependence of nuclear level density and nuclear structure properties, the enhancement of fusion yields at sub-barrier energies, and lifetimes of nuclear levels using methods of recoil distance and studies of conversion electrons. The breakup of polarized deuterons will be measured and the results of three-body calculations will be compared with these data. Reaction rates and energy levels of importance in the synthesis of heavy elements in stellar environments will be determined. A new program to produce beams of radioactive nuclei suitable for the study of secondary nuclear reactions will be pursued. This accelerator facility is also used extensively for nuclear physics research by visiting scientists and their students from nearby colleges and universities and from other countries. In addition, the facility hosts research in atomic physics and radiation chemistry.